CAREER: Computational Approaches to Modeling Mechanical Phenomena at Nanoscales

Abstact:
In this career plan we propose to use computational approaches that
integrate atomistic simulation tools with mesoscale methodologies to
tackle problems relevant to nanotechnology. The proposed
work on modeling of interactions and dynamics of
steps on crystal surfaces and dislocation-obstacle interaction
in semiconductor heterostructures will provide guidance
to experimental work in the areas of nanostructure
fabrication on vicinal surfaces, stress measurements in
nanoscale structures and growth of relaxed epitaxial semiconductor
thin films.
The educational part of the career plan aims at
developing curricula that fosters transfer of information
among disciplines. Specifically, we propose to
provide opportunities for undergraduate research projects
in nanoscience and to develop senior-level/graduate courses
that focus on modeling of mechanical phenomena on
nanoscales. The courses will incorporate methods and models of
modern statistical mechanics with emphasis on
their application to defect mechanics in nanostructures.